NeTS-NOSS: Collaborative Research: Lightweight Monitoring Tools for Sensor Networks

Proposal Number: Collaborative Research: 0626954, 0626151, and 0627155
PI: Ramesh Govindan, Leonidas Guibas, Subhash Suri
Institution: USC, Stanford, UCSB
Title: NeTS-NOSS: Lightweight Monitoring Tools for Sensor Networks

Abstract:

Networks of tiny and inexpensive smart sensors have ushered a new generation of low-cost, large-scale, high-resolution, real-time sensing and actuation. As their economic importance grows along with their size and complexity, it becomes critical to ensure their operational health and robustness through continuous monitoring. With that motivation, this project develops lightweight monitoring algorithms and tools for sensor networks that allow the network operators to observe the large-scale behavior of the network and detect significant anomalies in network attributes or performance. The tools themselves are generic and can be composed to provide tailored solutions to meet various application-specific needs.

The design of these monitoring tools requires inferring global aspects of the network through local information available at individual nodes. In order to synthesize a global summary from local views in a lightweight, energy-efficient manner, the project employs three methods: (1) intelligent sampling, (2) information aggregation, and (3) sparse representation of the signal landscape. These methods utilize mathematical techniques from geometry, topology, statistics, and distributed signal processing.

The network monitoring tools enable better designed, more robust, trustworthy, and longer-lived sensor networks in operation. That, in turn lowers costs and enlarges the community of users as well as the set of potential commercial applications for networked sensing.

The research output of this project includes novel algorithms, software tools, and their empirical evaluation using testbeds.